Sediment Records of Biomass Burning

Abstract ATM-9408864 Clark, James S. Duke University Title: Sediment Records of Biomass Burning Biomass burning profoundly affects atmospheric chemistry, the carbon cycle, and climate of biomass burning may have been greater in the past, before large increases in fossil fuel combustion. A principal obstacle to progress on understanding the past role of biomass burning rests with the interdisciplinary nature of the problem. This award supports a NATO Advanced Research Workshop to assemble the paleo records of past combustion and atmospheric and terrestrial expertise needed to interpret the effects of emissions on past global changes. Specific goals of the workshop are to: i) Better characterize sedimentary constituents and parameterize transport to sediments; ii) Calibrate lacustrine, marine, and ice-core records of biomass burning; iii) Identify the Data sets that could be used to quantify past biomass burning; iv) Estimate past mass fluxes of combustion-derived particulates and organic tracers; and v) Estimate past rates of biomass burning The program includes a balanced representation of fire ecologists, paleoecologists, and atmospheric chemists.